Honorable Mention: Minority Graduate Fellowship Award to Hugh D. Moore

This special award will give Ph.D. student Hugh D. Moore additional flexibility in pursuing his graduate studies and research initiation in physiological psychology. This award will strengthen minority participation in research in this area.